On the Importance of Substrate Reactivity and Enzyme Tethering in the Enzymatic Hydrolysis of Cellulosic Substrates

9523627 Converse The overall objective of this project is to use new experimental techniques to study the fall-off in the hydrolysis rate of cellulose as the hydrolysis proceeds. Two new hypotheses are to be tested to partially explain this fall-off. One is referred to as the chain-end hypothesis, where production of excess cellulose chain ends by pretreatment leads to a more rapid hydrolysis of these ends by cellobiohydrolase (CBH) than formation of new ends by endogluconase. The other hypothesis is called the tethering hypothesis, where once adsorbed, CBH has a limited number of cellulose ends available to it, and becomes inactive until it desorbs and readsorbs at a fresh site. ***